Methods for Designing Manufacturing Systems

The goal of this research is to develop and compare different methods of designing manufacturing systems. Manufacturing system design can be regarded as the mapping of performance requirements, specified with the help of numerical performance measures, onto numerical decision variables which specify a capable design solution. The methods investigated in this research are novel in two respects. First, they are targeted at a wide variety of manufacturing system types (flow lines, job shops, cellular system, etc.). Second, they can accommodate manufacturing system design problems in which the performance requirements involve multiple types of performance measures (e.g., production rate and average work in process), and in which design solutions involve multiple types of decision variables (e.g., machine quantities and machine layout and buffer capacities).//